National High School Space Weather Network

PROJECT SUMMARY

HEMISPHERE: Developing a National High School Magnetometer Array.
We propose to offer schools across the country the opportunity to measure and experiment
with Earth's natural environment, to contribute data to the nation's space weather
program, and to have effective teaching tools to educate young scientists about the space
environment. We have developed a relatively inexpensive, robust, sensitive magnetometer in
kit form that can be purchased and distributed to schools, assembled by students, then set
up and used to take research-quality data. Teachers will be trained in their operation and
how to use them in classroom activities that demonstrate "space-weather." The data will be
transmitted through a Web-based database, so that students can compare their local
readings with those of students at other sites around the continent and can be used by
university and other researchers to study geomagnetic Ultra-Low Frequency (ULF) waves.
Low- to mid- latitude magnetic pulsations provide important information about the solar
wind-magnetosphere interaction and the dynamic coupling of the magnetosphere and
ionosphere. The magnetic variations observable at low to mid latitudes include: Pc 3-4
pulsations (periods of 10-45 s), which are thought to have their source in the upstream
bow shock and or magnetosheath; and Pi 2 bursts (damped pulsations with 40-150-s periods)
which are associated with substorm expansion onsets. This proposal seeks funding to train
Master High School science teachers in the use of induction coil magnetometers, provide
the basic space science content needed for the understanding of magnetic pulsation data in
space physics research, and develop mentoring relationships between space physicists and
local high school science teachers and their students. These relationships will allow the
magnetometer data to be fully utilized both scientifically as well as educationally.
Specifically we plan to develop the documentation for the magnetometer, training material
for testing the instrument, and educational material for using the instrument in the
classroom. This material will be the basis for a one-week teacher workshop at UCLA
bringing together six geographically diverse science teachers that have already gone
through a space weather workshop at NOAA Space Environment Center in order to train them
as Master Teachers in the use and implementation of the magnetometer. This project
directly impacts pre-college education by providing High Schools with real-life space
physics instrumentation and ULF data for analysis.